Experimental Study of Detailed Chemical Dynamics and Photodissociation

This project will study the types of alignments in products formed from photodissociation. Photodissociation is the simplest among various processes (e.g., photodissociation, chemical reaction, inelastic scattering, surface desorption) which have a common characteristic: a transition complex which dissociates to fragments. Therefore, the planned experiments on photodissociation will provide information for all these processes.